NER: Massively Parallel Electron Photoemitter Micro-arrays for Nanoscale Lithography, Imaging, and Inspection Applications

NER: Massively Parallel Electron Photoemitter Micro-arrays for Nanoscale
Lithography, Imaging and Inspection Applications

Present electron-beam lithography, imaging and inspection systems
are limited to serial scanning of patterns with only one beam. As a
result the ability of such systems to scan substantial areas at
nanoscale resolution with practical throughput is not possible. However
if such machines were to scan using a massively parallel array of
independently modulated beams, the resultant parallelism would make
possible not only significantly improved throughput for conventional
applications in the nanoscale environment but also enable faster device
development by software changeable patterns. However at this time there
is no practical multiple-beam electron emitter source available that
will meet system-level performance and reliability requirements. The
goal of the proposed research is to prove feasibility of photocathode
microarrays for massively parallel and independently modulated electron
sources. A key deliverable of the research will be a fabricated
individually gated array of sources with sufficient emission current
density to expose a line of electron sensitive resist 5 to 100nm in
width.
The successful demonstration of feasibility for photocathode
massively parallel microarrays will require a stable, low noise and
reproducible photocathode and a viable scheme for fabrication and
independently modulating the current in each beam. As a result the work
will focus on two key aspects. First the extension of our previous work
to develop a thin film stack photocathode and pretreatments that will
provide the emission stability and intensity necessary and second to
examine schemes for producing microarrays using such photoemitters.
Photoelectron source arrays will make nanoscale lithography and
rapid e-beam review testing possible. Lithography and testing on the
nanoscale are necessary if the manufacturing at this scale for
microelectronic devices, sensors and electrical- mechanical systems is
to become as high in yield and rapid as sub-micron fabrication is
today.